Relationship Between Locus Coeruleus Neuronal Activity and Norepinephrine Release in Forebrain

9420620 Berridge A region at the top of the brainstem known as the locus coeruleus sends nerve cell processes to a number of locations throughout the forebrain and is believed to modulate behavioral and cognitive functions. It is already known the locus coeruleus cells change their rate of electrical signaling during different behavioral states, and it has been presumed that as the cells change their electrical activity they change the amount of the brain chemical norepinephrine which the secrete onto forebrain sites. Dr. Berridge's group will test the exact relationship between state-dependent changes in locus coeruleus electrical activity and norepinephrine secretion. This work will provide new insights into the mechanisms controlling the release of norepinephrine and should therefore provide a better understanding of the natural processes that modulate functions such as learning and memory, and reactions to stress. ***